Introducing Frequency Domain Vibration Analysis in the Undergraduate Structures and Dynamics Laboratory

9351309 Mantena This project will improve the structures and dynamics laboratory by expanding the laboratory's capabilities to include characterization of the mechanical properties of advanced materials (such as composites) and frequency domain testing. Specifically, a Fast Fourier Transform based impulse-frequency response vibration technique and modal analysis experiments will provide the seniors with a "hands on" experience for evaluating the dynamic characteristics of advanced materials and structures.